Developing a Public Awareness of Engineering Benefits to Society

The Researchers will investigate elementary and secondary students about engineering attitudes, with the objective of recommending corrective action to the profession.